Experimental Nuclear Physics Research Program

The proposed research utilizes a variety of accelerators in the U.S., Canada and Europe to study intermediate and high energy nuclear reactions. These studies examine both the dynamics of the nuclear reactions and the degrees of freedom required to describe the structure of the nuclear states. The major emphasis of the program will involve studies of electromagnetic processes. In particular with the expected completion of CEBAF accelerator in 1994, much of the effort will be directed toward the experiments associated with the CEBAF. An additional project involves the construction of a recoil neutron polarimeter (HARP) which will be used at NIKHEF and CEBAF. The proposed experiments, at CEBAF as well as NIKHEF and MIT-Bates, address physics questions ranging from the determination of nuclear structure functions to nucleon-nucleon correlations in nuclei to the underlying quark structure of baryon resonances. An experiment at even higher energy to measure J/Psi production in nuclei is being contemplated. Hadron-induced studies at other facilities will tend to emphasize the measurement of polarization observable, either with polarized incident particles, polarized nuclear targets, or both. Such measurements provide additional constraints and information on the medium corrections to the interactions and the role of relativity in the processes. //